Collaborative Research: Geochemistry and Whole Mantle Convection

Van Keken, Hauri
EAR-0229962, 0229755

The investigators are interested in the role that the generation and recycling
of oceanic crust plays in the formation of geochemical heterogeneity.
The formation of oceanic crust is a fundamental differentiation process that
causes distinct variations in trace element and bulk composition. The related
variations in density and rheology have important consequences for mantle
dynamics and mantle mixing. Our main hypothesis is that the formation and
recycling of oceanic crust can explain a vast proportion of the geochemical
observations. The central goal of this project is to study the role that
compositional density plays in preserving geochemical heterogeneity.
As part of the investigators' hypothesis testing approach they will
address following questions:
1) How does the recycling of oceanic crust affect mantle chemistry?
2) What are the relationships between noble gas and lithophile
isotope ratios?
3) Is it possible that the large-scale differentiation during Earth's
formation accounts for the presently observed heterogeneity?
The team will use a combination of geodynamical and geochemical modeling to
answer these questions. This provides an excellent tool to test conceptual
ideas by quantifying the effects of mantle mixing, fractionation,
differentiation, and degassing. The approach is based on previously established
collaboration between Van Keken, Ballentine and Hauri. Previous models will be
improved by the modeling of oceanic crust formation, incorporation of
lithophile isotopes, and significantly higher spatial and temporal resolution.
Van Keken and a graduate student will be responsible for the model improvements
and dynamical computations, while Hauri and Ballentine will guide the
hypothesis testing approach and aid the geochemical modeling. The collaborative
aspects are an essential component of this proposal.
This project will lead to a better understanding of the processes that are
responsible for the thermal and chemical evolution of our planet. It will aid
in the development of essential dynamical modeling tools and provide
cross-disciplinary integration, international collaboration, and education
of students in quantitative geophysics and geochemistry.